1999 Oceanographic Instrumentation

9877042
Findley
This award to University of Miami will provide instrumentation for oceanographic research for use on four research vessels operated by the university's Rosenstiel School of Marine and Atmospheric Sciences and by the Harbor Branch Oceanographic Institution as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a deep-profiling acoustic doppler current profiler, a new conductivity-temperature-depth (CTD) instrument, a scintillation counter, and bottles for sampling sea water for physical and chemical oceanographic research. The shared-use instrumentation supported here will assist marine scientists conduct studies throughout the world ocean in 1999 and future years.
***